Analysis and Modeling of Pattern Formation in Biological and Physical Systems

Lega
0075827
The investigator uses numerical simulations and analytic
techniques related to amplitude equations to study pattern
formation dynamics in swimming bacteria, wave number selection in
a Swift-Hohenberg equation modeling traveling wave patterns, and
traveling hole solutions of the complex Ginsburg-Landau equation.
The broad topics of pattern formation and the behavior of
patterns are widely important in mathematics and in application
areas. The investigator studies the conditions under which
certain equations have solutions that show such patterns, and
what these patterns say about the underlying physical or
biological problems.